Short-term Visit to Taiwan to Initiate Research on Allelopathy in Mangrove Plants

This award is to support travel to Taipei, Taiwan for Armando de la Cruz, Mississippi State University to develop a research program with Taiwan on allelopathy in mangrove plants. The project is supported under the cooperative science program between the American Institute in Taiwan (AIT) and the Coordination Council for North American Affairs (CCNAA). The National Science Foundation manages the program on behalf of AIT.